Conference: Resilient Supply of Critical Minerals 2026

Critical minerals and materials are important for national defense and economic development. The decline of American mining, processing, and refining capacity has increased supply chain disruption risks for many critical minerals. Additionally, the U.S. relies heavily on the import of critical minerals. Addressing the challenge related to critical minerals requires government, academia, and industry collaboration to establish policy framework, conduct research and development, build mines and processing facilities, and train and develop a workforce. New initiatives must also be undertaken to ensure a resilient supply of critical minerals that support the nation. This project will support the 6th workshop on “Resilient Supply of Critical Minerals” organized by the Missouri University of Science & Technology. The workshop serves as a platform to convene discussions on fundamental gaps and to provide a roadmap for future research. The theme for the 2026 workshop will be Harnessing Biology to Re‑Engineer Critical Minerals Supply Chains. The workshop will include early-career researchers, students, academia, national laboratories, industry, and policymakers. The workshop will produce a report and disseminate the results.

The goal of this project is to host the hybrid in-person/virtual workshop “Resilient Supply of Critical Minerals” at the Missouri University of Science & Technology, Rolla, MO on August 5–6, 2026. The workshop will identify gaps and will collaboratively develop a roadmap for future convergent research. Consistent with the 2026 theme “Harnessing Biology to Re‑Engineer Critical Minerals Supply Chains” the workshop will start with a plenary session on bio-extraction, followed by three sessions, namely, exploration and engineering, conventional processing and recycling, and policy, supply chain economics, and workforce development. All sessions will have two keynote speakers, short talks, and facilitated breakout sessions that allow participants to collaboratively generate ideas to address the critical minerals and materials challenges. In addition to the research roadmap on “traditional” critical minerals challenges, the 2026 workshop will address research challenges and opportunities for novel bio-extraction techniques, including scale-up to commercial production and broader applications. This will set the research agenda for future scientific research on bio-inspired critical minerals extraction. Although bio-based and biologically inspired critical minerals extraction processes have the potential to efficiently and sustainably produce critical minerals, they are yet to live up to that potential. This workshop series addresses an issue of tremendous national and international importance. The National Science Foundation’s support for this workshop enables the organizers to facilitate participation by early-career professionals and students, which broadens participation and prepares future critical minerals research leaders.